CAREER: Biomechanics of Swimming: Understanding the Physics of Biology

Jordan 9734393 This proposal is concerned with integrating a research program in the mechanics of swimming with a teaching program in biomechanics to generate an atmosphere where undergraduate students can team about the physics of biology and the processes of science. The research aspect of this proposal focuses on the swimming performance consequences of morphological and physiological variation in aquatic animals. At issue is the idea that the muscles which generate force do so in a way that depends upon their speed of shortening which in turn determines the hydrodynamic force produced by the muscle. Thus, a complete analysis of swimming would solve, simultaneously, the force-velocity relationships for both muscle and fluid-dynamic forces. The proposed work will attack this "force balance" with both experimental and theoretical approaches for analyses of swimming in anuran tadpoles. As a model system, tadpoles are ideal for studies of scale effects on swimming performance. These animals propel themselves by an retrograde bending wave on the tail, show a dramatic ontogenetic size variation, and an intriguing predator-induced morphological variation which appears to confer a swimming performance advantage over non-induced forms. This research program will be integrated into a teaching program by bringing the experimental techniques of biomechanics into the classroom. Through demonstrations, laboratory exercises and independent research projects, students will be able to apply what they have learned in their biomechanics coursework, as well as other biology and engineering courses, in an effort to understand the physical constraints and determinants of swimming performance.